CPMSA -- TEAMS - Teachers Emphasizing Achievement in Mathematics and Science

PI: Peter Negroni TEAMS (Teachers Emphasizing Achievement in Mathematics and Science) is an integrated, research based and systemic five year plan designed by the Springfield (MA) Public Schools to increase the number of minority students enrolling in and successfully completing precollege courses which will prepare them to pursue undergraduate degree programs in the sciences, engineering and mathematics. The project objectives have been developed to meet this primary goal. 1 . To increase each year and by the end of the five year project to increase by a factor of three the number of minority students who successfully complete Algebra in the 9th grade; 2. To increase each year and by the end of the five year project period to increase by a factor of two the number of minority students taking advanced science, mathematics and technology course work, including honors and advanced placement courses; 3. To increase the number and percent of minority students electing to enroll in the High School of Science and Technology by 5% per year for each of the five project years; 4. To begin tracking the number of students electing to major in SMET courses of study beyond high school with the first project year as baseline data and to increase the number each subsequent year; 5. By the end of the five year project period, to increase the number of minority group teachers in mathematics, science and technology; 6. To reduce the academic achievement gaps between minority and non-minority students in science and math by 5% per year for five years (with a total reduction of 25% by the end of the five year project period); 7. For each project year, to improve the instructional methods of math and science teachers who receive training; and 8. To develop SMET pac kets of math/science activities. The TEAMS strategy complements the district's dual philosophy of increasing minority college enrollment and increasing the number of students excelling in math, science and technology. TEAMS will involve all 42 Springfield schools and will capitalize on the strong partnerships established by the Springfield Public Schools with the business, higher education, social services and minority neighborhood communities. Working with faculty from nearby Hampshire College and the Five College Partnership (Amherst, Mt. Holyoke, Smith, Hampshire and U/Mass Amherst) , major project activities will involve: Upgrading teacher knowledge and skills in summer workshops and with continuous support throughout the year; Working with students to develop their own science and math projects which they will conduct in the manner of authentic researchers; Providing mentors, speakers and field trips to encourage more minority students to enter math and science career fields; Establishing neighborhood Math/Science Education Centers to assist all students to be successful in their Disseminating summer math/science booklets to assist all students to be successful in these courses and to courses by offering tutoring, help with homework and SAT Preparation; reinforce what has been learned during the previous school year as well as prepare for the upcoming year; Instituting Math/Science Expositions where students will present the results of their extended projects. This will be City-wide and follow a format of authentic research presentations; Placing advertisements/PSA's on local television stations to showcase what students are doing in math and science and featuring people employed in careers requiring math and science; Exposing students to real-world math and science with projects at local college laboratories and exposure to career options in SMET fiel ds: Increasing parental involvement by assisting with summer projects/activities, increasing attendance at the Expositions and attendance at Family Math and Science nights; Educating administrators and counselors to encourage and assist minority students in participating in higher level math and science courses and providing the necessary help in enrolling in college in SMET fields; and Providing a summer experience for students at the end of Grade 5 and Grade 8.